First Midwest Conference for New Directions in Experimental Design to be held May 18-20, 2000, in Columbus, Ohio

Abstract:
DMS-9981741 PI: Angela Dean
Co-PIs: Kathryn Chaloner, Dennis Lin, Dibyen Majumdar

The First Midwest Conference for New Directions in Experimental Design is
planned for May 18-29, 2000, at the Ohio State University. The meeting will
focus on the active areas of research in experimental design that have
relevance to industry, especially engineering and manufacturing. Areas of
emphasis are design for nonlinear models, experimentation for factor
screening, design for multiple linear responses, experimentation in the
presence of trends, computer experiments, and various other approaches
including Bayesian methods. In addition to the invited talks, ample time
will be given for small group discussions in which new researchers will
meet with key speakers, mentors and other participants. A panel discussion is
planned for the final day of the conference to discuss the future of
experimental design.

Although the geographic area for inclusion of participants is restricted,
the industrial use of experimentation in the face of time dependent,
infrequent observations makes the topic of current major concern. This venue
will help focus part of the statistics community on these problems.